Internet Addressing and the Domain Name Systems: Technical Alternatives and Policy Implications

This award provides partial support, over an eighteen-month period, for a study project to examine ways in which new technological approaches may help reduce policy-related conflicts associated with the Internet Domain Name System. Focus areas will include identifying different technical options for providing services associated with the domain name management system, and identifying policies and procedures to complement each of the technical alternatives. A report will be generated summarizing the findings and recommendations and will be made broadly available to the community.